RUI: A Study of Number of Ribbed Walls and Channel Aspect Ration on Heat & Friction Characteristics in Cooling ChannelFlows Applied to Turbine Blades, Heat Exchangers, Nuclear ..

The goal of the research is the experimental determination of the heat transfer and friction characteristics of internal flow in rectangular channels of different aspect ratios with one, two and four rib-roughened walls. The data will be used to evaluate a model for predicting the enhanced heat transfer performance. Such flow configurations are important for gas turbine heat transfer and other applications.